Optimal pH Control in Sequential Biochemical Reaction Systems

9402700 Fournier This proposal is on research to develop a technique which maintains a pH gradient across a membrane in order to obtain two pH values in the same reactor. With this approach, two enzymatically catalyzed reactions can occur at their own optimal pH by immobilizing one enzyme on one side of the membrane while the other enzyme reacts in the bulk phase on the other side of the membrane. ***